Travel of U. S. Participants to IJCAI-87, Conference to be held in Milan Italy, August 23-28, l987 (Computer and Information Science)

This award supports travel for U.S. participants to attend the forthcoming Tenth International Joint Conference on Artificial Intelligence (IJCAI-87) which will be held in Milan, Italy on August 23-28, l987. These conferences provide the main forum for the presentation of the latest developments in research and applications of artificial intelligence. (AI). Funding is needed because of travel budget limitations, especially for younger faculty members and graduate students, particularly those who are presenting papers or otherwise participating in the technical program of the conference. The importance of this award is that while a substantial amount of research in AI continues to be done in the U.S., the activities in other countries are steadily increasing and it is critical for U.S. specialists to be well informed about that work. Scientific progress in the field requires exchanges of ideas among groups in different countries. However, it is not sufficient just to read proceedings. Personal and informal interactions are essential, particularly where work in progress involves different viewpoints and styles of research.